Develop the Concept and Preliminary Designs for an Alaskan Regional Research Vessel

0004045
Alexander
This award to University of Alaska Fairbanks provides funds for a design study for an Alaskan Regional Research Vessel (ARRV). The study will include Concept and Preliminary Design development, and will be carried out in collaboration with Woods Hole Oceanographic Institution. It is anticipated that the design developed under this award will have applications to both the ARRV, anticipated to replace R/V Alpha Helix, and to other intermediate vessel requirements in the UNOLS fleet.
***